Structural Laboratory Equipment

Equipment will be obtained to upgrade the structural engineering laboratory at the University of Washington. It will be used to investigate earthquake engineering problems.